Hydrated Silica in the Deep Mantle

Plate tectonics processes produce volcanic rock along mid-ocean ridges that is later subducted into the Earth’s deep mantle. This material forms minerals of SiO2 (silica), which has the potential to store water in the crystal as hydrogen. Deep in the mantle, water-bearing silica undergoes structural transitions that affect the velocities of seismic waves. However, reliable laboratory-based velocity profiles and water contents of silica mineral phases remain unavailable and difficult to be compared with seismic studies. This project serves the national interest by promoting the progress of science through understanding how water in silica affects seismic wave velocities. The results will further our understanding of the plate tectonics processes, the structure of the lower mantle, and the global water cycle. This project will further benefit society by developing the STEM workforce through opportunities for geoscience graduate and undergraduate researchers, outreach activities and open science projects.

This project will measure sound velocities, water solubility, and the depth of silica phase transition in subducting slabs in the lower mantle. Using multiple high-pressure techniques, the project will measure the velocity profiles of the crystals with variable water content under mantle conditions. These experimental results will be used to build velocity profiles and to reveal the mechanism of water solubility in the silica phases. These results will be compared with seismic wave models of the region to aid to the understanding of the geophysical and geodynamic consequences of hydrated silica in the Earth’s lower mantle. This project provides career development opportunities and research resources to participating graduate student and undergraduate researchers in geoscience research.
This project is co-funded by the Geophysics and Petrology and Geochemistry Programs in the Division of Earth Sciences.